Flux Synthesis and Properties of Complex Solid State Chalcogenides

9817287
Kanatzidis
This research project will explore the synthesis of new solid-state chalcogenides using special low melting fluxes with an emphasis on understanding materials crystal structures and properties. A focus will be on controlling the stabilization of particular structrual building blocks, learning how to rationally stabilize quaternary and quinternary chalcogenide compounds, exploring new reaction types, and studying the nature of new charge density waves and superstructures occurring in some layered tellurides.
%%%
The development of new solid-state synthetic tools often leads to exciting new materials with useful properties of high interest to the device physics community. The materials developed will be routinely screened for various important chemical and physical properties, and promising materials will be studied further and their potential applications evaluated.